Mechanochemical Transduction Across the Cell Surface

The goal of this pilot study is to develop a new methodology that can be used to dissect the mechanism by which mechanical signals are transduced into alterations of cell form and function. An electromagnet will be constructed using a direct- current supply to provide an adjustable source of magnetic tension. In order to begin to analyze the molecular specificity of force transduction at the cell surface, potential transduction molecules (fibronectin) will be conjugated to magnetic microparticles, allowed to interact with cell surfaces, and then tested for their ability to modulate cell metabolism (DNA synthesis) in the presence of applied magnetic fields. Future studies will use this magnet system to characterize dynamic effects of external forces on cytoskeletal organization and polymerization and to identify proteins that mediate mechanochemical transduction across the cell surface. This approach is unique and provides a new method for examining the influence of surface tension on cell form and function.